National CyberWatch: Cybersecurity Education Solutions for the Nation

CyberWatch has been funded as an Advanced Technological Education (ATE) Regional Center of Excellence since 2005 (NSF Award Nos. 0501828 and 0902747) and has expanded its membership to 94 colleges in 29 states. With this award, the center transitions to an even broader scope as an ATE National Center of Excellence.

The mission of CyberWatch is "to advance cybersecurity education by leading collaborative efforts to strengthen the national cybersecurity workforce." The center is building a culture of collaboration among colleges and universities to:

* promote the growth of cybersecurity education programs nationally, especially in community colleges;
* build program and faculty capacity by sharing replicable models of excellence;
* promote the cybersecurity profession through a national dissemination program;
* strengthen student capacity and expand pathways to cybersecurity careers; and
* support research on cybersecurity education.

By promoting "models of excellence," CyberWatch is expanding high-quality cybersecurity programs at community colleges around the nation. The center is mentoring colleges to achieve the Center of Academic Excellence in Information Assurance Education - 2 Year (CAE2Y) designation; increasing students' awareness of cybersecurity careers and their participation in cybersecurity competitions at the K-12 and college levels; growing the number of faculty able to teach cybersecurity topics; assisting with curriculum development at all levels; expanding the knowledge base of what works (and what does not) in cybersecurity education at all levels; and continuing effective dissemination mechanisms, including the center's Web sites, newsletters, reports, conference presentations, and workshops and institutes, all of which advertise the center's services to a broad community.

As a national center, CyberWatch is leading the effort to bring cybersecurity education at community colleges to the forefront of the national dialogue, thereby helping employers across the nation to meet a critical workforce need.